Icesheet, Sea-Level, Climatic Interactions During the Younger Dryas/Cockburn Interval (11-8KA): Evidence Based on a Lake Coring Program

The investigations will continue investigation of the interactions between: 1) glacial response, 2) sea-level variations, and 3) climate, around the margin of the Laurentide Ice Sheet (LIS) in the vicinity of Hudson Strait and Frobisher Bay, Eastern Canadian Arctic. The time-scale for the investigation includes two major moraine forming intervals, the Hall and Frobisher Bay moraines, that are C-14 dated at >=10.3 and ca. 8.4 ka respectively. The former may be coeval with the Younger Dryas stadial of NW Europe; the latter is a major event (Cockburn Substage) around the residual Laurentide Ice Sheet. In the first year, 1987, we cored three lakes a few kilometers form the Terra Nivea Ice Cap, on the south side of Frobisher Bay, and distal to the Frobisher Bay moraines. In 1988 three lakes were cored distal to the Hall moraines. These lakes were cored at or below the marine limit so that we could 1) date the marine/freshwater transition for sea-level studies; and 2) use the litho-stratigraphy and diatom assemblages to investigate whether sea-level fell monotonically after deglaciation or if later transgressions occurred. Early studies by INSTAAR had suggested sea level fell rapidly after 9 ka ago unlike the more gradual emergence history farther north on Baffin Island. Stratigraphic sections in raised marine deposits indicated a possible transgression ca 8 ka ago. In cooperation with the AMS C-14 facility, University of Arizona, we have dated two of the marine/freshwater transitions in the first area; both date ca. 8.6 +/- ka despite a difference in elevation of 24 m. The emphasis in this renewal is to continue our program of lake coring in the region that lies distal to the 10.3 ka Hall moraines, but proximal to deposits of the Loks Land aminozone that has an estimated age of 40-50 ka. Numerous lakes exist in the area and are accessible for both winter and summer coring operations.